Postdoctoral Fellowship: MSPRF: Enumerative Geometry of Hitchin Moduli Spaces

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Samuel DeHority is “Enumerative Geometry of Hitchin Moduli Spaces”. The host institution for the fellowship is Yale University and the sponsoring scientist is Junliang Shen.